Student Drop Out Prevention For Minorities

Consistent with the proposed Presidential Executive Order to provide surplus/excess equipment to qualified institutions, it is considered appropriate that Mary Holmes College receive this award. The College, in a cooperative effort with the West Point Mississippi public school system, is intensely involved in a program to motivate at-risk students to continue in a program of formal education. This initiative is consistent with the Division of Human Resource Development's programs.